Embryonic Foundations for Motor Control Development

9421125 Bradley An important problem in understanding brain/behavior relationships is to determine how neural programs that generate and coordinate movement are established during early development. With this award Dr. Nina Bradley will use an important model system, the chick embryo, to describe the coordination that develops between the limbs during development. The studies will be conducted to describe the normal developmental sequence, and also to learn about the relative importance of intrinsic developmental changes in the nervous system versus changes in mechanical input from the environment for producing developmental changes in motor coordination. This work will greatly enhance our understanding of the control mechanisms that lead to appropriate maturation of behavior, and is likely to suggest ways that environmental influences can positively influence brain and behavior. ***